Mathematical Modeling

Westchester Community College (WCC) proposes to initiate a three-year project toincrease the numbers of students entering the mathematics, science, and engineering fieldsthrough the use of mathematical modeling. The more students who enter these fields, themore apt is the country likely to regain its economic leadership.The college will provide an early exposure to mathematical modeling--the first time at acommunity college--in order to make mathematics more interesting, exciting, and relevant.A manual on mathematical modeling will be developed, refined, and disseminated widely. It will be used as the basis for establishing an elective course in mathematical modelingat WCC. It will also be used to coach teams of students who will participate in the annualmathematical modeling competition.A national conference will be conducted to provide wide exposure to mathematicalmodeling at community colleges. The Principal Investigator will assist other colleges toinitiate course in mathematical modeling and to establish student teams for entry into thecompetitions.